Applications of Distance Geometry to Structural Elucidation by NMR

Professor Thomas Hayden is jointly funded by a grant from the Theoretical and Computational Chemistry Program, the Computational Biology Program, the Biophysics Program, and the Computational Mathematics Program to continue his theoretical research in the application of distance geometry to the interpretation of NMR spectra. Data from NMR experiments provide lower and upper bounds on the values of interactomic distances allowed by the ensemble of conformations of a molecule. Distance geometry can be used to improve these bounds by methods known as bound smoothing. New applications of distance geometry to bound smoothing are being investigated. Specific geometric structures and their relationship to certain classes of distance matrices are being carried out. One goal of understanding this relationship is to suggest possible conformations that can serve as a template for the design by a pharmaceutical chemist of rigid drug analogues which are active at a specific receptor site. %%% Nuclear Magnetic Resonance (NMR) techniques are rapidly evolving which will enable chemists to determine the 3-dimensional structures of large protein and nucleic acids in solution. These techniques provide an important complement to the more well-established X-ray crystallographic methods. The primary results which are obtained from such NMR experiments are internuclear distances between selected hydrogen atoms in the backbone of the protein molecule. Distance geometry methods, such as those being developed by Hayden, provide the primary mathematical tools which are used to determine the 3-dimensional geometry from these distance constraints.